Electrochemical Measurements in the Undergraduate Curriculum

9451216 Wheeler The project will acquire modern, computer-controlled voltammetric and amperometric equipment to enable student exposure to electrochemical principles and applications. Initial development will be in Analytical, Physical, Biological chemistry courses as well as undergraduate research. This will allow Furman to markedly improve curriculum in the area of electrochemistry. Further, the simultaneous application of spectroscopic and chromatographic methods will serve to amplify the distinct advantages and uses of such techniques.